Moduli problems in algebraic geometry

Hacking's research focuses on moduli spaces of algebraic surfaces.
These spaces are known to have complicated singularities in
general. However, Hacking proposes to describe fundamental
examples which are well-behaved and understand the many new
phenomena which do not occur for moduli of curves. Jointly with
Keel and Tevelev, Hacking will describe natural compactifications
of the moduli spaces of del Pezzo surfaces. These spaces can be
thought of as analogues of the moduli spaces of pointed stable
curves of genus zero associated to the exceptional root systems.
Hacking has shown that the moduli space of curves is rigid, i.e.,
cannot be deformed. However, a heuristic due to Kapranov suggests
that moduli spaces of surfaces should have deformations in
general, and Hacking aims to construct an explicit example. The
total space of the deformation should be a moduli space of
generalised surfaces in some sense, e.g., noncommutative surfaces.
Hacking also proposes to relate degenerations of del Pezzo
surfaces and derived categories and to study noncommutative
analogues of Kleinian singularities.

Algebraic geometry is the study of algebraic varieties, i.e.,
spaces defined by polynomial equations. Many of the spaces arising
in nature are algebraic varieties, so algebraic geometry is
important in theoretical physics. A moduli space is a space
parametrising all varieties of a given topological type. Moduli
spaces are again algebraic varieties and often have many
remarkable properties one cannot hope to observe on an arbitrary
variety. The moduli spaces of curves have been intensively studied
and are of fundamental importance in many contexts. The proposed
research concerns moduli spaces of surfaces, which are only poorly
understood at present.